Fourier Transform Infrared Spectroscopy in the UndergraduateCurriculum

Acquisition of a Fourier transform infrared spectrometer is improving the instruction in chemistry. The instrument replaced an aging dispersive IR spectrometer. Students are using a modern computer- controlled instrument which utilizes the Fourier transform method, which are two of the more important developments of the last few years. Two modern sampling accessories are extending the use of the IR to samples for which spectra previously could not be obtained. The instrument is being used in organic, physical, analytical, and advanced laboratory courses as well as in the undergraduate research program. Significant use in the non-majors courses is providing the non-science students with exposure to the power of computer search and spectroscopic techniques in identification and analysis of polymers and drugs. The grantee is matching the award from non-Federal sources.